Survey Research Methodology Optimization for the Science Resource Statistics Program

This grant funds a series of methodological studies to improve SRS survey design and data quality. In consultation with SRS survey managers, the PI will design studies to (1) evaluate the impact of incentives on survey participation and response quality, (2) optimize the design, layout, and wording of written materials mailed to respondents to maximize the likelihood that they will participate in the survey, (3) evaluate the impact of lower response rates on data quality, and (4) optimize the procedure for tracking respondents between waves of panel survey cycles to minimize non-response in later waves. The findings from this work will have theoretical implications for improving our understanding of the survey response process and thereby improving survey data collection generally.